Quantization, Symmetric Spaces, and Symplectic Reduction

This proposal studies two issues within the area of
quantization theory. The first issue, building on the PI's
earlier work, is the holomorphic quantization of symmetric
spaces. Attention will be given mainly to the noncompact case,
where singularities arise that one does not see in the compact
case. Building on work of the PI with J. Mitchell and work of B.
Krotz, G. Olafsson, and R. Stanton, the PI intends to find
appropriate ways to cancel out these singularities. He intends to
develop inversion and isometry formulas for the Segal-Bargmann
transform on noncompact symmetric spaces, with the goal of making
these formulas as parallel as possible to the results in the dual
compact case. The PI hopes to combine the approach used in his
work with Mitchell with the shift-operator method of Krotz,
Olafsson, and Stanton. The second issue concerns the relationship
of quantization to reduction. In work with W. Kirwin, the PI will
investigate the unitarity (or lack thereof) of the Guillemin-
Sternberg map between the "first quantize then reduce" space and
the "first reduce and then quantize space." We hope to
demonstrate that this map is not unitary, even to leading order
in Planck's constant, but that inclusion of the half-form
correction yields leading-order unitarity.

This proposal concerns quantization, namely, the
construction of a quantum-mechanical theory corresponding to a
given classical theory. In modern physics, the relevant theories
to be quantized often have interesting geometric properties
involving various sorts of symmetries. This proposal attempts to
understand how this geometry manifests itself in the quantum
theory. The first part of the proposal is an attempt to extend a
standard tool in quantum theory, the Segal-Bargmann transform
(closely related to the ubiquitous concept of coherent states),
to more geometrically interesting situations where nice
symmetries are present. The PI's earlier work in this area has
already been applied in several different ways by workers in loop
quantum gravity. The second part of the proposal concerns the way
symmetries interact with quantum mechanics. Most modern physical
theories (e.g., gravity, electromagnetism, relativity) use
symmetry in an essential way. The PI's work addresses the subtle
but important question of whether imposing the symmetries before
quantizing gives the same result as imposing them after
quantizing.